A New Family of Acoustic Emission Sensors for Damage Source Identification

Abstract
CMS- 0624985
Steven D. Glaser, University of California
Brekeley)

This project will use acoustic emission methods to develop tools for inspection and monitoring, which allows direct detection of structural deterioration prior to failure. New interpretation algorithms and transducer designs will be developed to account for current difficulties, such as working in a heterogeneous media, using few sensors, and placing the sensors far from the damage source.

The project focuses on three problems for which no sensor currently exists. They are:
i - development of a micro but hardened embeddible high-fidelity AE sensor sensitive to particle displacements;
ii - development of a micro three-component high-fidelity AE sensor;
iii - development of a high fidelity AE sensor specially for low acoustic impedance materials.
The project will leverage close ties between the P.I. and Prof. Christian Grosse of Stuttgart University, Germany. We will use the large scale test beds and actual field monitoring that will be made for his EU project, and gain a wireless platform with onboard processing power, built specifically for AE.